LCE: Simulation-Based Design environment by Meshfree Particle Methods

The goals of our proposed project are to develop meshfree-particle methods, which provide:

1. multiple length and time scales capabilities;
2. the abilities to treat shear failure bands, damage evolution, fracture, crack growth, fragmentation, and large deformation problems;
3. the capability to establish simulation-based acquisition, dramatically reducing the amount of live-fire testing, which is expensive and time consuming; and

To this end, the following objectives will serve as milestones as well as assist in the accomplishment of the above stated results:

1. The development of an adaptive micro-macro material length scale bridging methodology based on wavelet multiresolution analysis of shear bands so that refinement can be introduced in areas of high gradients; and
2. Collaboration with DOE and DOD personnel for validation and refinement of the procedures by comparison with experimental results.